Bowling Green State University Connection to the NSFnet Backbone

Bowling Green State University has several researchers who would benefit from access to supercomputing. They will be connected by a medium speed (56,000 baud per second) communication line to the Pittsburgh Supercomputing Center Academic Affiliates Network (PSCAAnet), which connects to the National Science Foundation Network (NSFnet). Six federally-funded supercomputing centers can be accessed through NSFnet.